Support of Latin American Participation in the Mathematical Logic Year at the Mathematical Sciences Research Institute in Berkeley, CA.

This Science in Developing Countries Award will support Latin American participation in the Year in Mathematical Logic to be held at the Mathematical Sciences Research Institute (MSRI) in Berkeley, California. This special emphasis year will provide a unique opportunity to make a major impact on the development of mathematical logic in Latin America. A significant number of the world's leading logicians will be in residence during the year, many of them for extended periods running from three months to the full year. Greater contact with logicians in the rest of the world will serve to continue the development of a number of Latin American research centers in mathematical logic. This award will support the participation of seven junior Latin American researchers, no more than six years from their Ph.D., in this special emphasis year at MSRI. Financial hardships in most of the Latin America countries work particularly hard against young researchers who have to compete with more senior established researchers for scarce funds. Providing younger researchers in Latin America with the means of making contacts and engaging in collaborative research with leading researchers in their fields, will help to ensure ties with the future leaders of mathematical logic in the area.